Behavior of Architectural Nonstructural Components in the Mexico Earthquake

This research project will combine a field study of building cladding performance during the Mexico earthquake of 1985 with supporting analytical and laboratory experimental studies of cladding/connection systems typical of practice. The primary objective of the research is to develop a functional understanding of the role that nonstructural cladding and interior partitions play in the structural performance of buildings under severe ground motion conditions. The research effort consists of a nonstructural damage survey and evaluation for selected buildings in Mexico City; laboratory testing of identified representative cladding connections; and an analytical study of two case study buildings for cladding-structure interaction effects.